Laboratory Studies of Tornado-Like Vortices

The objective of this research is the experimental and theoretical investigation of vortices produced in a laboratory chamber. The field of motion will be measured by a laser doppler velocimeter; the results, and the suitability of future experiments, will be guided by an existing three dimensional numerical model. The experimental vortices are designed to have a useful similarity with those of broad geophysical interest.